Research in Nuclear Physics and Related Topics

It is proposed to continue research on three topics: the application of the Fermion Dynamical Symmetry Model (FDSM) to collective motion in nuclei, including deformed nuclei: The development of more efficient shell model codes for nuclei and the non-relativistic quark model: and finally, baryon-baryon interaction on the quark model.